Nebraska Commutative Algebra Conference

This is a project to support a three-day commutative algebra conference at the University of Nebraska-Lincoln (UNL), May 7-9, 2005. The main goals of this conference will be to help recent
Ph.D.s and graduate students in the field to meet experienced researchers, to learn
about recent developments in commutative algebra, to exchange ideas with one another,
and to develop collaborations for future research. The primary topics will be aspects
of representation theory, homological algebra, computational algebra and ideal theory
that interact with commutative algebra. Speakers will be invited to discuss connections
among these topics.

We seek support primarily for a target group of participants: those who are recent
Ph.D.s, graduate students or women, as well as faculty from under-represented groups or
primarily teaching institutions. Most of the talks will be accessible to graduate students
and will demonstrate the main problems and techniques in the discipline.

Over the last fifteen years there has been intense and ground-breaking activity in commutative algebra, activity which has been rapidly transforming
the field. There is also extensive interaction with researchers in areas as diverse as
algebraic geometry, coding theory, combinatorics, homotopy theory, K-theory, and rep-
resentation theory. The proposed gathering will provide an opportunity for algebraists
to interact and establish research connections with each other; in particular the targeted
participants will benefit from the interaction and from seeing recent developments in the
field and its relationships with other areas.